REU Site: Design Tech - Sparking Research in Interactive Visual Design

The site is supported by the Department of Defense in partnership with the NSF REU Program.

Digital technology has already moved from the machine room to the desktop, and is now embedding
itself fully in our daily lives, becoming a designed artifact. Todays undergraduates love designed
technology, and with justification: the outsourcing of purely technical work is more common every day,
while creative technical design work remains truly value-added and secure. Yet oddly, there are few
educational and research programs that train future professionals for this environment.

The three-summer Design Tech program will begin to address this lack, inviting exceptional
undergraduate students in computer science and design to an interactive visual design hothouse. The
program is organized around several principles common to design and technology: celebrating creativity
feeding the spark that motivates successful designers and researchers; embracing critique
encouraging bold thinking and original work by making critique less threatening; focus on product
increasing the understandability of design and technical theory by placing it in an applied context; social
creativity emphasizing the group dialog of successful creativity to improve teamwork and diversity;
interdisciplinary teamwork using cross-disciplinary teams to improve research and design quality; team
diversity bettering designed technology with broader ethnic and cultural participation.

Design Tech students will be recruited from local womens and historically black colleges, pass
through an orientation, be formed into project-centered teams, and work with investigators in semi-weekly
meetings. Less frequent critique sessions inspired by design pedagogy will encourage independent and
critical thought. Projects will target delivery at a final session Showcase open to the public. Research
topics will emphasize interactive visual design, and be drawn from the existing research agendas of the
four investigators, who are experts in graphics, visualization, artificial intelligence and design.

Intellectual Merit
By bringing together the design and interactive computing communities in a
research and educational environment, Design Tech will generate powerful intellectual ripples. Obviously,
the research successfully performed by the undergraduates will have value, as will their learning about
research and design. As researchers and designers work together on these research problems, they will
find new solutions and perhaps more important, generate new problems. Similarly, as they cooperate on
pedagogy, they will synthesize new techniques for making better designers out of researchers, and better
researchers out of designers.

Broader Impacts
With its emphasis on diversity, Design Tech will have a broad impact on the
technical education of women and minorities. The investigators will publish their pedagogical successes
and failures on the web and in print, disseminating the results of their experiment. PI Watson is already
organizing a new SIGGRAPH course on graphics and design as well as an ACM campfire on interactive
visual design; his experiences in Design Tech will shape the thoughts he brings to and the content
disseminates at those events.